HPNC: A 10Gbit/s High Performance Network Connection for Illinois Institute of Technology Science and Engineering Research

The proposal uniquely plans to connect IIT to Argonne National Laboratory and then vBNS and Abilene, as part of an I-wire initiative. This network will enhance fluid dynamics research by making instrumentation in the IIT Fluid Dynamics Center available to other researchers via the national network; biological simulation research which are too large to run on the local IIT computer cluster; and research on improved methods of data-transfer among computational grids.